Acquisition of a Parallel Graphics Computer for Inter-Disciplinary Computational Science Research

9512270 Nicol The proposed project is to acquire a parallel graphics computer, a Silicon Graphics Onyx symmetric multiprocessor, that will support a wide variety of computational science research activities. This computer will provide a focal point for the initiation of new inter-disciplinary research in computational fluid dynamics, flow visualization, materials science, geophysics, and parallel algorithms for the simulation and analysis of complex discrete systems in addition to supporting existing research. This computational science environment will have the following joint attributes: (1) a parallel architecture of basic research interest to computer scientists, and (2) memory, computational power and sophisticated high-speed graphics capabilities sufficient to support the contemporary computational and data visualization requirements of physical scientists. ***